Theoretical Nuclear Physics

This work will address a variety of theoretical subjects related to or inspired by the collision of high energy heavy- ions; including a model for studying cluster distributions, correlations and fluctuations; a model for hadronizing the quark-gluon plasma in analogy to ferromagnetic phase transitions; and exactly solvable statistical mechanics models of fragmentation.